Some Fundamentally New Organocopper Chemistry

The synthesis of complex natural products such as the antibiotics requires highly selective reactions. This work, which will provide new organometallic reagents derived from relatively simple starting materials, is supported in the Organic and Macromolecular Chemistry Program. Several new aspects of organocopper chemistry are to be studied including (1) a search for chiral induction using chiral higher order cuprates; (2) a study on the effect of gegenions on cuprates, including the generation of the first non-lithio and non-magnesio-containing agents; (3) a study on the role of Lewis acids in cuprate chemistry; (4) the first example of the exchange of ligands between a metal and copper, with subsequent cuprate chemistry; and (5)the utilization of these new reagents in the synthesis of the polyene macrolide antibiotic roflamycoin.